AGEP: FACES: Facilitating Academic Careers in Engineering and Science

Intellectual Merit: The FACES program is a significant ongoing commitment by the Georgia
Institute of Technology, Emory University, Morehouse College, and Spelman College to
increase the national representation of minorities (URMs) in the engineering and the
sciences professoriate. The program is comprised of several components, and the aggregate
program addresses each critical step along the path to an academic career. To provide a
mechanism for the early recruitment of students into research and academic careers, FACES
will establish a Research Careers Office at Morehouse College. Furthermore, undergraduates
who have completed their sophomore year are provided summer and academic year research
experiences as a means of promoting their interest in research and graduate school
attendance. These students are then encouraged to enroll in graduate programs using a
series of recruitment efforts at national events such as the NSBE Annual Convention or
Annual Biomedical Research Conference for Minority Students (ABRCMS), campus visits and
tours, and a lecture/workshop series on the merit of graduate school and careers in
academia. Admitted Georgia Tech and Emory graduate students are supported on doctoral
fellowship supplements throughout their matriculation. Graduate student support is
provided by means of a stipend which increases in value as the student meets the critical
milestones along the way toward the Ph.D. Another portion of these funds is used to
support travel to technical meetings for research presentations. Finally, senior doctoral
students compete for Career Initiation Grants, which they may use as start-up funds to
assist in establishing their research programs in their initial academic appointments.
Assessment of program outcomes will be performed annually.
Broader Impact: This program is a blending of the resources of these universities to focus
specifically on increasing the production of URMs who earn engineering and science
doctoral degrees. This proposal has been initiated by African American faculty who are
committed to this goal and recognize that success breeds success. Recruiting, mentoring
and academic support programs initiated by Georgia Tech, Emory, Morehouse and Spelman have
been quite successful in increasing retention, grades, and overall production of URM
degree candidates. Our partnership has created a pipeline of successful African American
undergraduates and this proposal describes a doctoral-focused program that builds on the
successful undergraduate efforts. As one of the leading producers of minority engineers
and scientists, this alliance is ideally positioned to increase the national production of
African American students who earn doctorates and promote their representation in academic
careers. With the assistance of NSF funding to keep the program elements in place, FACES
will continue to provide a mechanism to "change the face" of the national engineering and
science professoriate, substantially improving the current dearth of underrepresented
engineering and science faculty.